Planning Grant Proposal: I/UCRC in Lasers and Plasmas for Advanced Manufacturing

Columbia University is planning to become the fourth research site of the existing Industry/University Cooperative Research Center (I/UCRC) for Lasers and Plasma for Advanced Manufacturing. A planning meeting will be held to determine the organization and viability of forming a research site for the I/UCRC. The addition of Columbia University would strengthen the intellectual base of the multi-university LAM center. Columbia University researchers would contribute to the I/UCRC by developing laser induced thermal/mechanical processes; laser peen forming; laser ablative processes; laser applications in shape memory alloys; crystallization and deposition processes and sensors and sensor technology.